Collaborative Research: Institute for Theoretical, Atomic, Molecular, and Optical Physics

This award is to provide continued support for activities at the Institute for Theoretical
Atomic and Molecular Physics (ITAMP) at Harvard/SAO. The activity has been and
remains a resource for the theoretical atomic, molecular and optical physics community
since 1988. The ITAMP has a world wide, competitive postdoctoral program, supports
long and short term visitors and runs a number of workshops in forefront problems in
AMO physics. ITAMP postdoctoral fellows have been the major source of junior faculty
positions in theoretical AMO physics for the past ten years and have led to two senior
appointments to Harvard physics and chemistry departments where these individuals
can train some of the best and brightest students in AMO theory in the US.